Large Sample Problems Arising on the Borderline between Probability and Mathematical Statistics

The investigator plans to concentrate his efforts on large sample theory
problems connected with self-normalized sums and functionals of the empirical
distribution. His interest in self-normalized sums arose largely out of the
question: When is the Student-t statistic asymptotically normal? Among his
goals in this area, he hopes to complete the theory of the asymptotic
distribution of self-normalized sums. The particular functionals of the
empirical distribution that he plans to investigate include statistics and
estimators based on distance measures such as the empirical Hellinger distance
and a class of integral functionals of density estimators, which are used to
estimate entropy and the integral of the squared density and its derivative.
This will likely lead to the development of a theory of local U-statistics
processes. This theory would be analogous to the local empirical process theory
that he has worked out with a number of his long-term collaborators to study
the large sample properties of kernel-type function estimators. These include
kernel-type estimators of the density function, the regression function and the
conditional distribution function. Local empirical process theory has shown
itself to be a very powerful tool to determine exact rates of point-wise and
uniform consistency of kernel-type nonparametric function estimators. A local
U-statistics process theory should be at least as applicable. The research
problems outlined in this proposal should lead to the creation of a number of
new and useful methods to treat large sample theory problems.

The investigator works in the borderline area between probability theory and
mathematical statistics. He is delighted when he uncovers unexpected
probabilistic phenomena that occasionally appear on this frontier. The problems
that he is interested in are frequently motivated by questions about the limit
behavior of statistical tests and estimators. They arise whenever one wants to
make a decision on the basis of limited knowledge. This is especially the case
when it is not feasible to sample an entire population to settle a question
about that population. Some typical examples are when a medical investigator is
interested in deciding whether or not a proposed new drug or medical treatment
is effective or a fisheries scientist wants to estimate the number of salmon
that will return this season to spawn.